Collaborative Project: Research on Parallel Raycasting Engines and CAD/CAE/CAM Applications

This is part of a joint project at Cornell and Duke Universities to continue the successful research on custom hardware for solid modelling. Duke is extending and improving the hardware itself, while Cornell is building software for constructive solid geometry (CSG), integrating the resulting system with applications, and conducting field tests. The initial 8-processor system is being upgraded to 256 processors, to allow parallel processing of more complex objects. At the same time, the numerical precision of the hardware is being increased, and a tag system is included to allow the processors to keep track of software-specified properties of parts of objects. The software and applications are being extended not only to use these hardware changes, but also to include algorithmic improvements. Among the improvements foreseen are enhanced ability to translate from other representations, such as nurbs (non-uniform recursive B-splines) and boundary representations, into the CSG trees that are used by this system.